Analysis of Randomized Algorithms: Markov Chain Approach

The objective of this research is to establish methods for theoretical
study in an important area of theoretical computer science, which is
the analysis of randomized algorithms. The main focus is on problems
that either can be modeled by Markov chains or can be analyzed using
the Markov chain approach.

This project concentrates on three main topics: (1) general analysis
of discrete-time Markov chains and the Monte Carlo Markov Chain
method, (2) analysis of Markov chains for generating random
permutations, and (3) resource allocation problems in distributed
systems.

In the area of general analysis of Markov chains the goal of the
research is to develop new tools for the analysis of mixing times of
Markov chains. An important part of this study is to investigate
relationships between various known methods of the analysis of mixing
times of Markov chains.

In the investigations of Markov chains for generating random
permutations the main focus is on so called random switching
networks. These networks model behavior of many Markov chains that
are sought in applications in cryptography.

In the area of resource allocation problems in distributed systems,
the research focuses mostly on resource allocation problems in
networks, in which the cost of the allocation depend on the routing
properties of the input network as well as on the contention
resolution protocols applied to the system.